RUI: Stability of Spacetimes with Mild Singularities or Cauchy Horizons

Professor Konkowski will continue and extend her previous work on spacetimes with mild singularities. Mild singularities include quasiregular and nonscalar curvature singularities. In the case of quasiregular singularities, particle paths end suddenly with no warning from infinitely- increasing tidal forces, while in the case of nonscalar curvature singularities some, but not all, particles moving near the singularity feel infinite tidal forces. A study has already begun of a spacetime with a quasiregular singularity which can be approached only by an incomplete curve of bounded acceleration. This investigation will be continued using classical and quantum fields and applications of the singularity conjecture. In addition, spacetimes with mild singularities due to Siklos and to Gurses and Sermutlu will be studied. The rather than Ricci curvature singularities, which are likely to provide more stringent limits on the validity of the conjectures. Most of the stability tests have involved classical field techniques. She will now extend the tests to include the behavior of quantum particles and fields near mild singularities and Cauchy horizons. It will be interesting, for example, to examine the behavior of a particle wave packet as it approaches a mild singularity or a Cauchy horizon to study the effects of barrier penetration. It will also be interesting to broaden the stability conjectures to include the behavior of quantum test-fields near singularities and Cauchy horizons.